Center for Proficiency in Teaching Mathematics

The University of Georgia and the University of Michigan are leading the development of a Center to implement a potentially powerful professional development model for pre-K-16 mathematics education. The Center will establish a research agenda to examine the nature of the mathematical knowledge that is important to teachers' proficiency in teaching mathematics, and will use the knowledge gained to strengthen both the pre-service education and the in-service professional development of teachers . The Center will combine practice, research and professional development to build resources and capacity for the preparation of teachers of mathematics. The other higher education partners are the University of Michigan-Dearborn and Henry Ford Community College. School district partners in Georgia are Gwinnett County Public Schools, Morgan County Public Schools and Social Circle city Schools; and in Michigan, the large Washtenaw Intermediate School District. Connections are also established with a number of professional mathematics organizations, including the American Mathematical Society and the National Council of Teachers of Mathematics, to enable the Center to collaborate with and support collegiate teachers of mathematics and teacher educators on a broad scale across diverse settings.